Balancing Privacy and Analysis in Data Sanitization

CCR-0311671

Balancing Privacy and Analysis in Data Sanitization

Matt Bishop

When handling an intrusion, one organization may need to share
logs and network traces with other organizations. However, the
data to be shared may contain sensitive information that the
first organization does not wish to disclose to the other parties.
The solution is to sanitize the data by removing information from
the data. This protects the privacy of the organization. However,
the data removed may be essential for the analysis of the data that
the other organizations must perform. This research explores the
tension between privacy and security analysis. The goals of this
research are to: (1) develop a sanitizing language to describe
the requirements for privacy and security analysis in such a way
that the requirements can be automatically checked for inconsistencies;
(2) determine the conditions under which "perfect sanitization"
can occur, if any; and (3) examine the problem of sanitizing
a dynamic data set that changes as the sanitization proceeds.
This will involve developing and testing the sanitization
language on both data extracted from a network, and on files
containing student grades. The former will provide examples of both
static and dynamic data. Perfect sanitization will be studied by
translating the sanitization process into functions and analyzing
their ranges and domains.

The significance of this work is in the balance of privacy and security.
Previous work focuses on sanitizing data in an ad hoc manner, rather
than analyzing the balance between privacy and security and allowing
the sanitizers to choose among particular requirements when the needs
of privacy and security analysis conflict. Its impact is that if
successful, the results can be used in a wide variety of fields in
which privacy and analysis (not just security analysis) must
be balanced.